Computer Science Enhancement Grant for Students

This project provides financial assistance to eligible students in the computer science degree program. A panel of instructors evaluates each applicant's potential for success in completion of the computer science degree and selects the participants. Selected participants receive tuition and books paid for by the grant. In addition to financial assistance the scholarship recipients meet with the computer science advisor/ mentor on a bi-monthly basis during the semester. This helps monitor their progress and assure their success in the program. A series of workshops are held to assist the students throughout the program. The project capitalizes on the strengths of the Mentoring Model to work with students as they move through the computer science degree program.